NIRT: Semiconductor nanostructures and photonic crystal microcavities for quantum information processing at Terahertz frequencies

NIRT: Semiconductor nanostructures and photonic crystal microcavities for quantum information processing at Terahertz frequencies
Abstract
This grant will explore the fundamental physics of elements in a proposed semiconducting quantum information processor (QIP) which is potentially scalable to ~1000 quantum bits (qubits). The qubits in the envisioned QIP are the two lowest orbital states of electrons bound to shallow donors (D0) in GaAs or bound in elongated self-assembled quantum dots called quantum dashes (QDAs). QDAs will be grown by molecular beam epitaxy on patterned substrates. The resonance frequency of D0 and QDA-based qubits will be between 1 and 4 Terahertz (THz). The energy relaxation and decoherence rates of these qubits will be measured, and are predicted to be slow because the resonant frequencies are well below that of an optical phonon. GaAs and Si Photonic crystal resonators for THz frequencies will also be fabricated and characterized. Finally, qubits will be incorporated into resonators and reversible coupling of energy between the resonator and qubits will be investigated.

This research program works at two scientific and technological frontiers: harnessing quantum mechanics for information processing, and developing the portion of the electromagnetic spectrum between 1 and 10 THz (THz-1 THz=one trillion cycles/s). The research will explore a new approach to quantum information processing in semiconductors, enhance our fundamental understanding of the transfer of information and energy between simple quantum systems and their semiconducting hosts, and create new materials and structures in which to store THz light and control its interaction with matter.